Symposium: Psychoneuroimmunology: Reciprocal Interactions Among the Nervous Endocrine, and Immune Systems, Vancouver, British Columbia, Canada, December 27-30, 1992

This action is for travel support for American scientists to participate in a symposium on the interplay between the nervous, endocrine and immune systems to be held in conjunction with the annual meeting of the American Society of Zoologists in Vancouver, British Columbia. State-of-the-art lectures will be held on (1) behavioral regulation of immunity and (2) mechanisms and consequences of central nervous system and immune system interactions. The emphasis of these presentations is on the use of diverse biological systems. The goal of this meeting is to encourage greater research participation by zoologists in this new and expanding field. The hope is that conveying the conceptual and empirical advancements in psychoneuroendocrinology will lead to the development of new experimental approaches which, in turn, will be used to unravel the complex mechanisms, pathways and feedback loops that serve to communicate interactions between these three systems. Elucidating the basic mechanisms underlying stress and developing coping strategies will be one outcome of a better understanding of this intimate relationship between the neural, endocrine and immune systems.